MPWG: Developing Gender-equitable Science Activities for Girls through University-based Service Learning for Women

This program will design, implement, evaluate, and disseminate a unique model program for: (a) presenting science activities that will interest and challenge elementary school girls in extracurricular settings while providing them with role models; and (b) helping female undergraduate and graduate students improve their scientific/technical expertise and self esteem by giving a worthwhile outlet for their technical knowledge. The project is co-sponsored by the University of Iowa Women in Science and Engineering (WISE) Program and the Association of Women in Science- Eastern Iowa Chapter, with the cooperation of the Iowa City Community School District, and the Iowa City Area Sciences Center, Inc. Three teams, each with one female faculty, staff, or post-doctoral scientist or engineering, one female representative from the science center,and 4-6 female undergraduate and graduate students, will design science curriculum packets. Science teachers will serve as educational consultants. Each curriculum packet will include and integrated set of gender-equitable science activities developed around a different multi-disciplinary theme. The science themes will complement, not duplicate, the classroom curriculum. Activities in each curriculum packet will include: (a) short, exploratory activities that can be completed in 15 minutes or less; (b) longer activities that require at least 30 to 60 minutes to complete; and (c) extension activities that can be completed by students at home with or without parental involvement. Activities will use gender-free language, require hands-on experience in small groups, develop research skills, relate to daily life, be non- competitive, and support more than one correct outcome. Such activities are appropriate for use with both girls and boys, are more effective for girls than traditional science curricula. The science curriculum packets will include: (a) edible chemistry (for grades K-1), (b) brain power (for grades 2-3), and (c) genetics (grade 4-6). Each team will present these activities to elementary school-aged girls and boys in extra-curricular settings (e.g., before and after school day care programs; neighborhood centers that serve low- income families; elementary school science clubs; clubs such as Girls Scouts, Campfire,and 4-H; and community science programs) in Iowa City and surrounding school districts. The design teams will evaluate the effectiveness of each activity and make appropriate modifications. The program will benefit three groups: (a) elementary school girls (and boys), (b) female college students, and (c) female professional scientists and engineers. The program will increase the awareness of parents and educators of gender issues in SEM; place science education in a community context; extend the scientific and technical resources of the university into the community; and increase the visibility of female scientists and engineers.